Collaborative Research: RUI: Impacts of size-selective mortality on sex-changing fishes

Many marine fish species change sex during their lifetimes, and many of them are targets of commercial and recreational fishing. The timing of sex change in these animals is often related to body size, so populations typically consist of many small fish of the initial sex (usually female) and few large fish of the other sex (usually male). In nature, smaller fish are at a greater risk of mortality due to predation, but fishermen tend to seek larger fish. Thus fishing that targets larger individuals may skew sex ratios, removing enough of the larger sex to hinder reproduction. However, the extent to which size-selective mortality affects sex-changing fishes is poorly understood. This research will explore the effects of size-selective mortality on the population dynamics of sex-changing species using an integrated set of field experiments and mathematical models. It will provide the first experimental exploration of the sensitivity of different sex-change patterns and reproductive strategies to selective mortality. The results will advance our knowledge of the susceptibility and resilience of sex-changing organisms to different types of size-selective mortality and will reveal how sex-changing species can recover after size-selection ceases, as in populations within marine reserves where fishing is suddenly prohibited. The findings will inform fisheries management policies, which do not currently consider the ability of a species to change sex in setting fisheries regulations. The project will provide professional training and research support for three graduate students and multiple undergraduates from California State University Northridge, Moss Landing Marine Laboratories, and University of North Carolina Wilmington. The research findings will be communicated with fisheries managers, via national and international scientific meetings, posted on institutional websites and social media, and through publicly available modeling exercises.

This project will consist of a three-year study of the effects of size-specific mortality on sex-changing fishes. Field experiments will use three closely related rocky-reef fishes that differ in sex-change pattern and are amenable to field manipulation and direct measurement of reproductive output. The species include a protogynous hermaphrodite (a female-to-male sex-change pattern common among harvested species) and two simultaneous hermaphrodites that differ in their ability to switch between male and female. Two types of experiments will be conducted on populations established on replicate patch reefs at Santa Catalina Island, California: (1) sex ratios will be manipulated to determine when the scarcity of males limits population-level reproductive output; and (2) experiments cross-factoring the intensity of mortality with the form of size-selection (i.e., higher mortality of large or small individuals) will test the demographic consequences of size-selective mortality. In concert with the field experiments, size- and sex-structured population models (integral projection models) will be developed for use in three ways: (1) to evaluate how different types of selective mortality should affect population dynamics; (2) to predict outcomes of the field experiments, testing/validating the model and allowing direct prediction of the ecological significance of short-term selection; and (3) to fit to existing survey data for a fourth species, a widely fished, sex-changing fish, inside and outside of marine reserves. Part (3) will evaluate whether and how quickly the mating system and reproductive output of that species (not directly measurable in the field) is recovering inside reserves. This integrated set of field experiments and models will yield novel insight into the effects of size-selective mortality on the population dynamics of sex-changing marine species.